Production and Relaxation Pathways of Multiply Excited States in Slow Highly Charged Ion-Atom Collisions

9732614
Ali
Multi-electron processes in slow, highly charged, ion-atom collisions using time of flight, triple-coincidence measurements of Auger electrons, scattered particles and target recoil ions are investigated. In addition, Q-values and angular distributions will be measured using recoil ion momentum spectroscopy.